Conference on Integer Programming in Honor of Egon Balas: Carnegie-Mellon University, June 3-5, 2002

This award provides partial support for a mini-symposium June 3-5, 2002 to commemorate the numerous contributions of Dr. Egon Balas on the occasion of his 80th birthday. Dr. Balas is a long time NSF grantee in the Operations Research program and one of the World's leading contributors to the field of combinatorial optimization. He has made many fundamental advances and has won most of the prestigious awards for distinguished achievement in mathematical programming and operations research. The meeting will include talks at Dr. Balas' Carnegie-Mellon University from numerous distinguished speakers in the area of combinatorial optimization. NSF funding will help support participation by doctoral and postdoctoral students, and selected invited speakers.